Acquisition of Liquid Chromatography and Sample Preparation Instrumentation for Enhanced Reconstruction of Quaternary Environmental Change

0949398
Miller

This grant supports acquisition of a high-pressure liquid chromatography (HPLC) system for amino acid racemization thermochronology and plant pigment analyses, a gamma spectrometer for 210Pb and 137Cs dating of recent sediments and calculation of sedimentation rates, and a microwave digestion system and freeze drier for sample preparation. The equipment will support PI research in Quaternary paleoclimatology, quantitative geomorphology, aquatic ecology and watershed hydrology at the Institute of Arctic and Alpine Research (INSTAAR) at the University of Colorado. PI environmental change research has immediate relevance to our understanding of global and regional climate dynamics and the impacts of climate change on ecosystems. The equipment will support student research training, and active PI outreach efforts to the local K-12 community.

***